Upgrade of Ohio State University Chemistry Department NMR Facility

This award from the Chemistry Research Instrumentation and Facilities (CRIF) Program and the Office of Multidisciplinary Activities (OMA) will assist the Department of Chemistry at Ohio State University to acquire a 400 MHz nuclear magnetic resonance (NMR) spectrometer and 250 MHz and 300 MHz NMR consoles. This equipment will enhance research in a number of areas such as the following: (1) chiral metal complexes for asymmetric catalysis, (2) conformational analysis of complex carbohydrate systems, (3) construction of unusual molecular systems, (4) activation barriers for carbene rearrangements, (5) perforin-mediated cytolysis (6) catalytic dendrimers for asymmetric catalysis, (7) high potential iron proteins, and (8) structure and dynamic behavior of selected carbanionic species. Nuclear Magnetic Resonance (NMR) spectroscopy is the most powerful tool available to chemists for the elucidation of the structure of molecules. It is used to identify unknown substances, characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectrometry is essential to chemists who are carrying out frontier research. The results from these NMR studies are useful in the areas such as polymers, catalysis, and in biology.